RIA: Parametric Modeling Tools for Performance Prediction of Parallel Programs

9308513 Alaghband The analysis and prediction of performance of parallel programs is the topic of this research proposal. The measure of how well a correctly running parallel program will perform on a given architecture is a complex task which requires an in-depth knowledge of parallel algorithm design, programming language, and the underlying system and architecture. The focus of this work is on generation of a model based software tool for analyzing and extrapolating the performance of programs written in a specific parallel language.